Travel Grant for Young Investigators to attend the 1998 IEEE-AP Conference on Antennas and Propogation for Wireless Communication, November 2-4, 1998 in Waltham, MA

9812632 Naftali The 1998 IEEE-AP Conference on Antennas and Propagation for Wireless Communications (APWC) will be the first in its field of interest to bridge the gap between academia and industry. The Antennas and Propagation Society of the IEEE believes it is critical to bring these two groups together to discuss the latest problems and solutions in antennas and propagation as they relate to the rapidly expanding wireless communications. APWC is scheduled for November 2 to 4, 1998 in Waltham, MA at the Westin Hotel. This project requests travel support to defray the travel expenses for young investigators whose papers have been selected for an oral presentation at the Conference.